An Annovative In Sita Testing SS-CPT Based Geotechnical Tomography/Technique for Soil Stratification

This project enhances the state of the art in electromagnetic geophysical tomography, an adaptation of Computerized Axial Tomography (CAT) used successfully in medical diagnosis. Geophysical tomography, based on mechanical waves, has been used to study rectangular regions up to 1000 meters on a side, as well as to analyze deep earth structures. Sources have included airguns, explosives and earthquake data. The method's capabilities have been augmented using geophones, called seismic cones, to detect the arrival of artificially generated waves to determine geophysical characteristics. This approach is referred to as the seismic source cone penetration test (SS-CPT). However, the seismic cones have several limitations. This research proposes evaluation of a method to address these limitations. This field evaluation will take place at well documented sites in California where extensive geotechnical investigations have already been performed to establish site stratification.